Dimension and Dynamics

ABSTRACT
Solomyak

The goal of this project is to investigate self-similar measures
and sets, self-affine sets, and attractors of non-linear iterated
function systems. The main emphasis is on the "overlapping" case
when the symbolic coding is non-unique, and the closely related
higher-dimensional non-conformal case. Hyperbolic and parabolic
systems will be considered. The topics include
dimension computation, the study of topological properties of
attractors, and smoothness properties of natural measures on them.
The methods of symbolic dynamics and ergodic theory, number theory
and geometric measure theory, harmonic and complex analysis will
be used.

Dynamical systems describe a wide range of phenomena,
such as the motion of planets and asteroids, the rise and fall of
populations, the weather, and the stock market. Many of these
systems exhibit "chaotic" behavior and have "attractors" of
intricate shapes and structure. This structure can often be
explained by an underlying "self-similarity" which means that
the object looks similar at all scales. The "fractal dimension"
of the attractor is one of the basic characteristics which can
be used to distinguish systems of different nature.
Topological properties, such as connectedness and presence of
the interior are also very important. We are still very
far from complete understanding of these complex objects, and this
study aims to investigate them in a number of model cases.
Moreover, the theory developed for this is relevant in
other areas, such as computer image recognition.